PostDoctoral Research Fellowship

This award is made as part of the FY 2022 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Maximilien Hallgren is "Fine Structure of Singularity Formation in Four-Dimensional Ricci Flow." The host institution for the fellowship is Rutgers University New Brunswick, and the sponsoring scientist is Jian Song.